Observations of Synoptic and Sub-synoptic Scale Disturbances

This award is the result of the transfer of Principle Investigator John R. Gyakum from the University of Illinois to McGill University, Montreal. The remaining portion of his second year funds is hereby recommended for award to McGill University.